Molecular Computation in Ciliates

This research focuses on the interplay between molecular biology, computer science,
and evolution to probe a complex form of biological information processing: gene
unscrambling in ciliated protozoa. A long-term goal is to develop a multidisciplinary
approach to this problem that will enable us to tap into this biological process as a
computational tool.

Intellectual merit
The intellectual merit of the proposed activity is the unique combination of three
approaches experiments, computational biology, and modeling to improve our
understanding of the function, mechanism, and logic of this phenomenon. Because
gene unscrambling in stichotrichous ciliates has the ability to assemble thousands of
genes from tens of thousands of scrambled segments within a single genome, it is
our opinion that DNA unscrambling in ciliates remains the most complex and
spectacular, yet least explored, type of DNA computation known in biology. This
proposal uses gene unscrambling as a model system to explore the mechanisms
underlying complex gene and genome rearrangements, the steps through which
these processes have evolved, and their capacity to solve hard computational
problems in vivo.

Broader impacts
The broader impacts resulting from the prior NSF ITR award has been an influx of
new ideas and direction from computational sciences into the study of a complex
biological system of programmed DNA rearrangements in ciliated protozoa and
training of a varied, interdisciplinary group of students. The broader impacts resulting
from the proposed activity would be expansion of the current work and
interdisciplinary student training, with even more synergy between different members
of the group from the computational and experimental sides, with the ultimate goal of
harnessing this process for the purpose of performing in vivo computation. The
strength of the combined approach is its ability to recognize underlying quantitative
principles, which would otherwise be missed in descriptive studies of gene
unscrambling alone, and the continued building and refinement of a strong
quantitative framework to understand this natural computing paradigm. This is
especially germane as we enter the stage of post genomic data for ciliates,
heightening the need for rigorous quantitative tools and analysis to understand how
nature implements complex data structures in molecular biology. These studies of
'BioWare' offer a glimpse into one of nature's attempts to explore the diverse range
and capacity of modern genetic systems.